A Workshop on Future Challenges of Signal Processing and Communications in Wireless Networks

This workshop focuses on new challenges of signal processing and communications in decentralized (non-cellular) wireless networks. Of particluar interests are fundamental limitations of wireless networks, emerging signal processing and communications theory and techniques, sensor networks and applications, and recent initiatives by commercial and defense industry. The objective is to identify pressing problems in communications and signal processing in the network environment and make recommendations about important research areas. The workshop will feature keynote speakers from leading researchers followed by the panel discussions.